Curation of Four Elements of the CASIZ Collections

9305348 Williams This support will enable the California Academy of Sciences to curate and computerize a recently discovered collection of molluscs that includes specimens from the 1905-1906 Galapagos Expedition and other early 1900s expeditions to the Indo-Pacific. This collection has historical importance in studies of the changes in mollusc diversity and the causes of those changes. Computerizing the collection will make the data more readily available to researchers and students and will greatly increase its use in biodiversity research and education. %%% A historic collection of molluscs was recently discovered at the California Academy of Sciences, one of the premier institutions that house and maintain research collections of organisms and make them available for research and education to professionals and students. These molluscs were collection in the early 1900s during expeditions to the Galapagos Islands and the Indo-Pacific. Studies of these molluscs can reveal historical trends in changes in biodiversity of these groups and the possible causes for those changes. Computerization of this collection will make the collection and its data much more accessible to researchers and students nationwide. *** 2 ~ \ @ ~ ?~ @~ % @~ ~ " Schmitt & Galletti FAW ~ v & ~ 6@~ % ~ ~ & From 9292; $50K; yr. 2 of 5??? Scott, Michelle Univ. of Y ` T Y $ $ $ $ $ $ D Y ` Y ( Times New Roman Symbol & Arial " h e e 7 Leonard Krishtalka Leonard Krishtalka